Coronal Mass Ejections and the Rotational Bursting of F-Coronal Dust

The program will investigate the rotational bursting of F- Coronal dust particles to high density (108 protons/cm3) Coronal Mass Ejections in the F-Coronal region. Rotational bursting of F- Coronal dust make take place due to the tension caused by high spin rate, which can be driven by four spin mechanisms. Four different spin mechanisms will be investigated theoretically by this proposal. Repeated rotational bursting from the parent particle and its fragments will alter the size distribution of the dust, and ultimately result in ejecting the resulting smaller particles from the solar system by the action of solar radiation pressure overcoming the gravitational attraction of the Sun. #